Native Science Connections

9353217 Alcoze The proposed Native Science Connections (NCS) project is designed to develop culturally relevant science modules that complement the existing science curricula in grades 4 through 6. The curricular materials in science and mathematics will focus on four Native American tribal nations: Zuni, Hopi, Apache and Dine (Navajo) and will demonstrate the existence and validity of Native American sciences and mathematics as they are manifested within the traditions and cultures of the original peoples of the Americas. The project will be directed and developed by experienced Native Americans science teachers and education professionals. Materials produced from this project include four science modules that will be developed around environmental themes. They will be used in both Native American and mainstream classrooms. ***